Variations in Fall-Winter Temperatures on Spring ZooplanktonPopulation Dynamics and Coupling with Phytoplankton

This project will examine the hypothesis that the principal spring biomass peak of the copepod, Acartia hudsonica, is not an immediate response to the winter-spring phytoplankton bloom, but instead reflects processes controlling zooplankton population dynamics prior to the bloom, and interannual variation in winter and spring temperatures. Thus the spring biomass peaks of phytoplankton and zooplankton are not closely coupled in spite of their temporal association. Model predictions suggest that small variations in temperature significantly affect rates of copepod development and maturation, and the timing and size of the spring zooplankton population peak. This in turn influences the degree of coupling with phytoplankton and higher trophic levels late in the bloom. The project combines field and laboratory studies to determine the influence of seasonally important factors controlling the population dynamics of the copepod, Acartia hudsonica, and its coupling to other trophic levels in Narragansett Bay, R.I. The effect of interannual variation in temperature conditions will be examined in large outdoor mesocosms. The mesocosm work will be coordinated with a NOAA/Sea Grant funded study of the effect of temperature on growth and survival of larval winter flounder, Pseudopleuronects americanus.